CSUMS: A Computational Training and Interdisciplinary Research Program for Undergraduates in the Mathematical Sciences at the University of St. Thomas

DMS-0802959

The project features a year-long, combined educational and
research experience for a cohort of 9 to 12 students during each
of the five project years. Participants are recruited from the
institutions of the Associated Colleges of the Twin Cities (ACTC)
and perform their coursework and research under the mentorship of
faculty at the University of St. Thomas (UST) in St. Paul, MN and
faculty at other ACTC institutions. Participants benefit from a
course developed to support the learning and use of
computationally intensive methods in mathematics and statistics.
The cohort participates in a variety of workshops, seminars,
conferences, and field trips. In small groups, cohort students
contribute to research projects requiring the computational
skills acquired in the course and share their progress with
fellow students and project faculty. Students periodically
present their results in the larger professional community. The
intellectual merit of the project is the result of the following
achievements. Students become proficient using computational
methods and learn to apply this knowledge to perform research on
problems whose solutions require the use of these methods.
Through interaction with local academicians and industrialists,
students see how their computation research methods are used in
other areas of research and in real-world problems. The broader
impact of the project is felt at four levels. At UST, students
learn how to perform research using computational methods and
faculty gain experience teaching a new course that emphasizes
computational methods. On a larger level, these same impacts are
realized by students and faculty at other ACTC institutions.
Local industries that utilize computational methods benefit from
graduates of ACTC schools who enjoy a high level of proficiency
in scientific computation. Finally, student presentations and
sponsored conferences promote to a national audience the
innovative curricular elements developed and research
advancements made by cohort members.

Computing power continues to grow at an incredible rate. As
a result, scientists can use the computer to create highly
sophisticated models for use in solving complicated mathematical
problems. In addition, computational methods developed decades
ago that were once intractable in practice due to the lack of
computing facilities can now be employed to model and solve
problems. It is imperative that undergraduate mathematics
students at universities in the United States receive the
training they need in order to make the utmost advantage of the
world's ever-increasing computing resources and remain
technologically competitive with scientists on a global level.
Towards this end, mathematics and engineering faculty from the
University of St. Thomas in St. Paul, MN and mathematics faculty
from other institutions in the Associated Colleges of the Twin
Cities engage undergraduate students in research groups under the
auspices of the National Science Foundation's Computational
Science Training for Undergraduates in the Mathematical Sciences
program. For each of the next five years, a group of 9 to 12
mathematics majors forms a cohort and participates in a year-long
program to learn about computational methods used in mathematical
research and put the knowledge they have accrued to work as they
join with faculty mentors to perform research on problems with
applications to areas such as cancer treatment, image compression
and analysis, tornadic storm detection, the behavior of thin
films, and directed cell movement. Students visit local
industries in the Twin Cities to further learn how scientific
computing is used to solve real-world problems and present
results of their work at national conferences. Students leave
the program armed with both the tools required and experience
necessary to continue work at a high level either in industry or
graduate school on problems requiring an expertise in scientific
computation. The project is supported by the MPS Division of
Mathematical Sciences, the MPS Office of Multidisciplinary
Activities, and the EHR Division of Undergraduate Education.